Interaction of X-rays, Vacuum UV, and Ions with Atoms, Surfaces, and Fullerenes

9732159
Sellin
This research is a joint experimental and theoretical effort whose primary objectives are the testing and elucidation of the details of single and multiple ionization, of electron transfer, and of atomic interactions at surfaces. Both electromagnetic radiation and charged particles will be used as collision partners, and comparisons will be made of the similarities and differences induced by the two types of collision.